Mathematical Sciences: Mathematical Science Computing Research Environments

The Department of Mathematics and Center for Applied Mathematics and Statistics at the New Jersey Institute of Technology will purchase a graphics workstation environment at an estimated discounted cost of $23,000 a Silicon Graphics Indigo with mass storage devices, and a color printer/plotter which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several projects, including in particular: 1. Microwave heating of materials by Gregory Kriegsmann 2. Acoustic Focalization by Michael Porter 3. Dynamics of Curved Detonations by Bruce Bukiet